Laboratories for an Object-Oriented Introductory CS Curriculum

9451123 Carithers In order to better serve the needs of our students, the Department of Computer Science at RIT has fundamentally redesigned the seven courses in the lower division of our Computer Science curriculum. The revised curriculum introduces the object-oriented programming paradigm immediately, and stresses the view that software development is no longer an exercise practiced by individuals in isolation, but rather is more commonly a cooperative effort involving members of a team working to produce a solution. Immediate exposure to the object paradigm is a revolutionary approach to Computer Science education which we feel will have far-reaching impact on the field. Our revision addresses four primary problems: the perception that computing = coding; the disparate backgrounds of entering students; the inability of students to grasp fundamental structures and relationships; and the need for early, sustained emphasis on software engineering. Our solution revolves around the points mentioned above, through early exposure of students to large, "real-world" examples. Students begin not by developing software from scratch, but by examining and modifying existing artifacts, imprinting them with the principle of software reuse while at the same time illustrating good programming practice in a way which involves the students from the start. In order to implement this curriculum, a portion of our existing facilities will be upgraded. We will purchase UNIX-based workstations which will provide the resources needed to support the software used in the new curriculum. Both hardware and software are needed to fully support the new curriculum.